Introducing Research and Innovative Instruction into the Undergraduate Science and Mathematics Curriculum Through Advanced Computing Technology

The university's Advanced Computing Laboratory (a) introduces parallel processing (PP) and high performance computing (HPC) into a spectrum of mathematics and computer science (Math/CS) courses; (b) increases the breadth and depth of undergraduate multidisciplinary student research; and (c) creates and widely distributes PP and HPC user guides specifically tailored to undergraduate needs. The equipment purchased through this grant enables new instruction, creating two new courses and enhancing seven existing Math/CS courses. Student research, utilizing the new laboratory, is integrated within the curriculum at three levels, including the required multi-year seminar courses. Drawing on their course and research experiences, students develop user-friendly guides for PP machines and HPC software. In addition to its primary audience of Math/CS majors (including pre-engineering and teacher education students), the laboratory serves Biology and Chemistry majors. The Ohio State University provides a software library to facilitate student work in graphics related projects. As a result of the new laboratory and software (a) graduates are better prepared for professional careers; (b) students are more motivated to pursue graduate school; (c) students assist in advancing scientific education through dissemination of user guides and presentation of research findings at conferences, in journals and through various on-line methods; (d) partnerships with local companies are strengthened through collaborative research projects; and (e) the course model can be replicated at other institutions.